Entry Level Mathematics: Outreach for the New Decade

The members of the Mathematics, Statistics, and Computation Department at Mount Holyoke College are initiating a four-year project aimed at creating an entry level mathematics curriculum which will serve all students. At the end of the four year project, a curriculum with a variety of attractive entry level courses and a number of parallel tracks leading to a mathematics minor will be developed. These minors are being designed to supply a coherent set of intellectual tools which will form a basis for further study, both in mathematics and in other disciplines. This new curriculum will have much more flexibility in allowing students with weak backgrounds to pursue scientific careers and will, ultimately, lead to a larger number of students electing to major in mathematics. It will also better serve students who go on to nontechnical careers.